Optical Monitoring of Hazardous Waste Combustion

The sensitivity and selectivity of resonance-enhanced multi- photon ionization (REMPI) spectroscopy for detecting various chloro-ethylenes in a helium bath has been demonstrated in a previous grant. Research is to be continued to determine the limits of the technique for gas samples containing more representative exhaust products. REMPI will also be used to measure chlorinated flame radicals as a means to develop plausible chemical mechanisms for the production of toxic chlorinated hydrocarbons. This data, coupled with the detection sensitivity studies, will assist in the selection of appropriate combustion surrogates for continuous incinerator monitoring. An issue central to the development of safe incineration of waste and hazardous organic materials is the control of emissions of undesirable chlorinated hydrocarbons. Research is proposed to improve our ability to measure trace concentration of various CHCs, which attacks the problem at two levels: providing high sensitivity continuous stack gas monitors, and sophisticated analytical techniques for laboratory measurement of flame radicals critical to unraveling toxic CHC species formation mechanisms.